Advanced Power Electronics/Motor Control Testing Facility

9601818 Liou This grant will establish a simulation and testing facility for motion control and power electronic technology. It will support: * One HP Engineering Workstation with peripheral devices to run SABER system simulation software; * A three-year SABER system simulation software maintenance agreement; * Three Yokogawa high bandwidth, three-phase power analyzers to measure voltage, current, and power of tested power converter or machine; * One four-quadrant Dynamometer for loading of rotating machine under test (MUT); * Two LeCroy high sampling frequency digital oscilloscopes for data acquisition of experimental results; * Two digital signal processor (DSP)-based developmental systems for implementing various control algorithms in motion control applications; * Voltage and current transducers for measuring and isolating experimental voltage and current signals. Existing research in this PI focuses on the rotating machines used in various motion control applications, especially squirrel cage induction SCI machines and switched reluctance machines (SRM). The new instrumentation will increase the capability and efficiency of is research efforts and enable him to train more graduate students. With the proposed SABER system simulator, design mistakes can be found and corrected easily by conducting simulation runs before building a prototype in the laboratory. A four-quadrant dynamometer will provide all kinds of load profiles for a machine under test. Accurate data collection is vital in verification of efficiency and performance improvements made possible by innovations. High bandwidth voltage, current, and power meters and digital oscilloscopes can enable him to conduct experiments on the prototypes with both accuracy and ease. Since there is no such motion control testing facility available for the general research community in the San Francisco Bay, he also plans to reorganize short courses using this pro posed facility for professional enhancement of motion control engineers and engineering faculty. *** ??